The Rheology of Elastohydrodynamic Lubricants at High Shear Rates and High Pressures

Experimental and analytical studies will be made of the response of elastohydrodynamic (EHD) lubricants to the very high shear rates and pressures which are encountered in EHD lubrication, using comparable, very short time scales. New techniques have been developed to measure the dynamic compressibility and the response to dynamic shearing, by extending the torsional Kolsky bar and pressure-shear plate impact techniques. These techniques will be combined with analytical analyses to reevaluate the concept of limiting shear stress in liquid lubricants and to investigate the possibility that shear flow localization in the EHD lubricant may play an important role in EHD lubrication.